Optimal Dynamic Load Management and Supply Allocation for Electric Power Networks

This research deals with the generic problem of load modeling and model validation. The theoretical effort includes investigation into the use of the Hankel matrix of the autocorrelation function as a tool for constructing a stochastic load model from system operational data. Load control algorithms are to be generated by stochastic dynamic programming techniques. Experimental verification techniques are proposed using the DOE Athens project as a data source.